Analysis Support for Development of Concurrent Software Systems

Developing large-scale, reliable software capable of exploiting the potential of concurrent and distributed hardware systems will demand the support of powerful automated tools, especially analysis tools. The constrained expression approach to analyzing such software systems seems to have several advantages, including broad applicability and reasonable efficiency, relative to other proposed approaches. Results of initial experiments with the approach, based on manual application and preliminary prototypes of some of the needed tools, have been encouraging. They have also raised some interesting theoretical questions and demonstrated the need for more extensive experimentation with large, more realistic examples. This project is to investigate ways to improve the efficiency, power, and ease of use of the constrained expression approach to analysis. The goal is to design and construct the more robust, flexible and efficient prototype tool implementations needed to support more extensive experimentation, and begin experimenting with them.